CAREER: Processors for the Computation of Future Digital Signal Processing Applications

Abstract
0546907
Bevan Baas
U of California - Davis

CAREER: Processors for the Computation of Future Digital Signal Processing Applications

Applications requiring significant levels of Digital Signal Processing (DSP) are becoming increasingly commonplace examples include GPS receivers, Wi-Fi wireless networking, 3D medical imaging, and cell phones. As these applications become increasingly sophisticated and more frequently portable, their performance and power dissipation requirements often exceed the capabilities of modern DSP processors. The
goal of this research is to develop novel architectures, circuits, and software for high performance and low power DSP processors that meet the demands of emerging and future DSP applications, and that are also well-suited to future semiconductor fabrication processes. Research results are introduced into both undergraduate and graduate level courses and other investigators are involved in collaborative efforts. Results of this research are expected to enable new embedded, medical, environmental, and consumer applications.
To achieve project goals, the investigators develop DSP systems with features that are new on several levels. First, easily-scalable programmable building block processors with high performance and high energy efficiency are developed using innovative architectures, granularity, clocking, interconnection, and circuits. Second, efficient architectures are developed for shared blocks such as large memory arrays and specialpurpose DSP processors, as well as methods for effectively integrating these blocks into the programmable DSP array. Third, software tools including a compiler and automatic mapping tools are developed to more easily program the system. Fourth, to demonstrate gains in performance and energy efficiency, the system is implemented in silicon, tested, and characterized.